SBIR Phase II: Tissue Engineered Cartilage for Drug Discovery

This Small Business Innovation Research Phase II project is to develop scale-up production technology to produce engineered cartilage for drug discovery using a proprietary Alginate Recovered Chondrocyte (ARC) method. This method stimulates adult human cartilage cells to form a cartilaginous tissue with proper compositional and functional properties. ARC cartilage tissue is expected to offer a cost-effective alternative to current culture systems and expensive animal studies while utilizing human tissue.

The commercial application of this project will be in the area of drug discovery for cartilage-related problems such as rheumatoid arthritis.